Support for the Fifth International Organization of Paleobotany Conference; July, 1996; Santa Barbara, CA

9418676 Manchester In July 1996, the Fifth International Organization of Palaeobotany Conference (IOPC-5) will convene in Santa Barbara, California to address the theme of floristic evolution and biogeographic interchange through geologic time. The objectives of IOPC-5 are to: 1) encourage scientific and professional interaction among paleobotanists from different parts of the world studying a range of geologic times and systematic groups; 2) provide improved opportunities for the participation of students (particularly women and U.S. minorities) in a major international and national meeting; and 3) gain an improved understanding of the global history of plant evolution through comparison of data summarized from all continents for different geologic time intervals. Support is requested to help attain these goals by: covering the travel costs for two participants in each of eight primary symposia and subsidizing registration costs for students, women, and U.S. minorities.